Middle Class Lawyers: The Transformation of Small Firm Practice (Law and Social Science): VPW

This project looks at the work of small-firm and solo legal practitioners as they confront new opportunities to market and advertise services, incorporate innovative ways to computerize offices, and respond to the entry of women into the labor market. In various and complicated ways, each of these developments captures essential themes of the late twentieth century and challenges traditional professional practices. The ways in which these legal practitioners describe and understand their life-style, values, aspirations, expectations, and commitments provide an entry point for examining contemporary economic, political, and social values of urban America. This effort addresses a significant and little-studied issue in law and social science, how developments in marketing, technology, and the participation of women in the law labor force have affected small and solo practitioner firms. It furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective include: teaching a graduate course in the sociology department, and giving seminars at the law school, sociology department, and Center for the Study of Women.